Mathematical Models of Structured Populations in Biology

Webb
0190148
The investigator studies differential equation models of
structured populations. The structured models arise in
considering four applications: (1) models of tumor cords
structured by the cell cycle, (2) models of blood cell production
systems with proliferating and quiescent compartments structured
by cell maturity, (3) models of replicating prion populations
structured by polymer length, and (4) models of
vancomycin-resistant enterococci epidemics in dialysis clinics
structured by the time since patient admission.
This project applies theoretical mathematics to biological
and medical research involving population interactions. The
specific goals are to identify the behavior of proliferating and
quiescent cell populations in the micro-architecture of
vascularized tumors, to differentiate, qualitatively and
quantitatively, the development of normal and abnormal blood cell
population lines, to evaluate hypothetical mechanisms involved in
the polymerization processes of prion population growth in
transmissible spongiform encephalopathies (mad cow disease), and
to predict the epidemiological effects in dialysis clinics of
health care worker hygiene, patient-health care worker ratios,
and screening of temporarily absent patients. Benefits to
society are the project's contributions to the fundamental
knowledge of biological and health sciences.